Conformational Dynamics of Rhodopsin and Bacteriorhodopsin

Fluorescence polarization and energy transfer is used to probe the conformational dynamics of two light-activated proteins, rhodopsin and bacteriorhodopsin. Over the years, these proteins have provided important model systems for receptor action and ion transport, respectively. The goal of the present study is to investigate changes in protein flexibility as a result of conformational transitions. These systems are especially convenient for this purpose because of the ease of inducing transitions with light. These experiments should provide unique information on how protein dynamics influence conformational transitions. Phase lifetime spectroscopy is used to measure changes in fluorescence energy transfer and fluorescence polarization in bacteriorhodopsin as it proceeds through its proton-pumping photocycle. This novel technique will allow changes in position of the chromophore, retinal, to be monitored for intermediates which exist on the millisecond time scale. In the rhodopsin work, fluorescence labels are attached to a site located on the carboxyl tail which is thought to anchor the tail to the membrane. The membrane location of the this site will be established using fluorescence energy transfer. Fluorescence anisotropy measurements will be used to characterize the motion of the "tethered tail". Finally, theoretical models will be investigated to provide link between molecular dynamics and conformational changes.